Campaign Contributions as Investments: Theory and Evidence

It is widely believed that many contributions to political campaigns view their contributions as a kind of investment, expecting some private benefit in return for their money. This benefit might be a special tax reduction, a profitable contract to provide some goods or services to the government, or perhaps an official position. The benefit need not be forthcoming or even precisely defined at the time the contribution is made. Rather, the contributor may simply expect that , sometime in the future, the recipient will be able and willing to provide some desired service. This project continues the development of a model of campaign funds in which the market for political "favors" is treated as an asset market. This model captures many of the essential features one would expect of a market for quid pro quo contributions, and yields a number of interesting and strong hypotheses which are empirically testable about the pattern of contributions across elections. The extensions that are being developed for the current project include: (1) detailed investigation of races with incumbents, (2) explicit consideration of the dynamics involved in reaching an equilibrium, (3) allowing contributors to supply votes as well as money in exchange for political favors, and (5) modelling small, individual contributors, perhaps treating their contributions as a kind of consumer good. Empirical tests involve data on campaigns for the U.S. Congress and the California Legislature. Campaign-financing issues are under continuous public policy debate. A better understanding of the campaign-financing process is essential for the construction of sensible public policy.